Design and Detailing of Transverse Reinforcements for High Strength Reinforced Concrete Columns Subjected to Seismic Loading

The development and investigation of high strength reinforced concrete applications comprises a major advance in building planning and design because of its increased capacities. The present state of high strength reinforced concrete design needs in-depth study to accurately predict the anticipated performance of its many component parts under dynaic lateral loading such as earthquake loads. High strength reinforced concrete is also a sophisticated and complex building material due to the large number of design and construction constraints which influence its quality, long term behavior, and final stress values. In order to more accurately model its structural response, it is necessary to develop a fundamental data-base of performance standards. The proposed project is concerned with the development of design and detailing criteria for transverse reinforcement in high rectangular columns with compressive strengths exceeding 15,000 psi. Its objectives are to determine methods to provide sufficient ductility for earthquake-resistant structures. The research plan includes both experimental and analytical studies. At least twelve large-scale column specimens will be tested and be subjected to axial and repeated lateral loads at increasing displacements. From these tests, data will be collected for the analytical documentation of the effects of concrete compressive strength, axial load, and types of transverse reinforcement on the ductility of high strength concrete columns.